South Dakota Statewide Systemic Initiative

The State of South Dakota proposes a Statewide Systemic Initiative to improve mathematics and science education. After thorough study of the literature and examination of exemplary programs in science and mathematics throughout the country, a state-wide group will establish standards and desired outcomes for mathematics and science education in South Dakota, using as guidelines the recommendations of NCTM, MSEB, AAAS, and others. School districts will be given assistance and incentives to analyze their curricula and devise methods for raising their programs to meet the new state standards. Valid new methods of assessing student learning will be developed and implemented. Both teacher preparation and teacher enhancement will be strengthened to encourage teaching for understanding and utilizing hands-on methods. The initiative will stress increased citizen awareness of the importance of mathematics and science and promote the involvement of parents, business, and mathematicians and scientists with the schools. Cost Sharing: 50%.